Atomic Ionization/Recombination Phenomena in Plasmas

Two lines of research relevant to ionization and recombination processes in plasmas will be addressed, namely spectral line broadening and ionization equilibrium in a strongly magnetized plasma. The impact theory of line broadening will be extended to include the effects or recombination on the line shape and an investigation will be made of those plasma regimes where such an extension of the impact theory is applicable. Analysis of the effects of thermal motions, which create an electric field, will be made to determine their effect on the ionization balance via continuum lowering and tunnelling and decay of highly excited states.